Asset Market Structure, Savings and Investment

9309978 Lucas Financial markets play a central role in channeling savings to productive investments and allowing individuals to share and reduce risk. If these markets were complete and frictionless, savings, investment, and asset prices could be analyzed without consideration of factors such as idiosyncratic risk, transactions costs, and market structure. But empirical evidence suggests that individual consumption patterns cannot easily be explained by aggregate consumption alone, as would be the case if there were complete risk-sharing. Casual observation also suggests that there are potentially important frictions in financial markets due to brokerage fees, illiquid markets and so on, and that information problems and legal restrictions limit the extent of feasible contracts. The contribution of this project comes from developing theoretically rigorous and empirically tractable models in which individuals face aggregate and idiosyncratic income shocks, and have limited access to financial markets. The goal of this research is to better understand the effect that borrowing and short sales constraints, transaction costs and other financial market imperfections have on aggregate savings, investment, the level of interest rates, risk premia and trading in financial markets. Of particular interest are the implications of a decline in financial market transactions and increased market access, as has occurred over time. The project examines how these factors affect risk premia, the amount of risky investment and the distribution of asset holding in the economy. Further, the project examines whether financial innovation should be expected to increase or decrease the overall level of savings in the economy. Determining the net effect of financial innovation on equilibrium savings and investment will have implications for our understanding of how financial innovation affects the growth path of the economy. To assess some of these predictions, empirical relationships will be estimated using data from sources such as the Panel Study of Income Dynamics and the Survey of Consumer Finances. The project also looks for more direct evidence on the extent to which asset holdings are used to buffer idiosyncratic income shocks. ***